Potential of Non-Destructive Evaluation Equipment

This project is an investigation of the Potential Market for Non- Destructive Evaluation Equipment for Civil Engineering Projects. The study will evaluate the type of equipment best suited for constructed facilities and which should be developed through basic research activities.